Cornell Topology Festival Support; 2003-2005

Abstract

Award: DMS-0244361
Principal Investigator: Peter J. Kahn

The topology/geometry group in the Department of Mathematics at
Cornell University requests funding to continue support for three
years for the Cornell Topology Festival, which this group has
hosted each year since 1963. The Festival provides a significant
arena for the dissemination and development of important, new
results from a wide array of areas within the realms of
algebraic, differential, and geometric topology, and allied
subjects. While it is planned to continue the broad,
interdisciplinary flavor and collaboration-friendly format that
have characterized the Festival over the years, it is also
proposed to extend the Festival by a day to accommodate specific
annual areas of emphasis. In this way the Festival can be
responsive to the dominant trends of this era: namely, the
simultaneous flourishing of both subspecializations and
cross-disciplinary activity. An active outreach program, which
includes some travel support, will be initiated to broaden
participation in the Festival. For our initial conference under
this grant (May 1-4, 2003), we will have as area of emphasis the
very active field of geometric group theory.

The Topology Festival was conceived and initiated in the 1960's
both as an annual celebration of the burgeoning field of topology
and as an annual conference/workshop for topologists in the
northeastern United States. While topology has deep roots in
early European mathematical investigations of space and geometry,
it is in the mid-twentieth century that topology came of age,
with American mathematicians providing a large array of seminal
discoveries. American topology has been a key element in
America's world leadership in mathematics. Topology is a broad
subject, which overlaps with areas of `discrete' mathematics
(e.g., algebra, combinatorics), as well as with `continuous' or
`smooth' mathematics (e.g., differential geometry, dynamical
systems, mathematical physics). Indeed, a large part of
contemporary mathematics has been profoundly affected by
topological results and methods. As a foundational subject, the
applications of topology are very widespread. A few examples are:
genetics (the study of knotting of DNA molecules), neuroscience
and robotics (dynamical systems modeling), computer science ( in
geometric modeling and simulation), mathematical economics (in
smooth equilibrium theory), physics (the theory of gauge fields),
and neighboring fields in mathematics (e.g., geometric group
theory). Although many of the basic questions that powered early
efforts in topology have been answered, new problems are
constantly being generated as science moves forward, and
important classical problems remain. An example of the latter is
the Poincare Conjecture, which has been the subject of several
notable talks at past Topology Festivals and remains one of the
premier unsolved problems of mathematics today---one of the Clay
Institute's seven `millenium problems'--- and the focus of
intense research. The topologists and geometers at Cornell are
proud of the useful role that the Topology Festival has played
and will continue to play in the contemporary development of this
dynamic area of mathematics.